Acquisition of Scanning Probe Microscope System to Enable the Development and Application of Scanning Probe Devices for Engineering Measurements

9601807 Furman This project is for equipment to measure surface properties and features at atomic levels. The equipment will be used for research in material science, chemistry, physics biology, engineering, biotechnology, information storage and semiconductors. ***